CAREER: Quantifying Humanlike Enveloping Grasps

Over the past decade, our ability to produce graphical
images has improved to the extent that we can create
imaginary scenes that are virtually indistinguishable from
reality. Digital humans have been called the last frontier
in this march to graphical realism, and the area of human
animation has also seen dramatic developments. Increasing
use of motion capture data and new techniques for
manipulating that data allow us to reproduce human motion at
an extremely high level of fidelity. Graphically generated
characters in video games and films can seem uncannily real.
Pending the development of easy-to-use tools for directing
digital humans, we should soon see digital humans as
plausible user interfaces, and animated characters will
become much more prevalent in education, demonstration, and
training applications. If digital humans are the last
frontier in realistic computer graphics, the last frontier
in realistic digital humans is generating believable hand
motion. Human hands are beautiful and complex mechanisms,
amazing in their utility and adaptability. It is argued that
it is our hands that make us human, and that hand evolution
was a primary factor in the development of intelligence.
Hand use in autonomous digital human characters, however, is
generally quite unconvincing. Hands may be placed in a
single frozen pose, and interaction between characters and
objects is avoided when possible. The main problem is that
geometric models of the human hand have far too much
flexibility. This flexibility makes working with hands
difficult even for trained animators, and it poses a
tremendous challenge for creating autonomous characters that
must interact with their environment. I believe that the key
to making further progress in hand motion for digital
characters is much more detailed consideration of the
anatomy of the human hand. In analysis of human grasps, for
example, critically important considerations include the
amount of contact between finger pads, palm, and object; the
ability of muscles to produce or resist task force; and the
stabilization roles of fingers and muscles, yet none of
these issues have been explored in grasp synthesis research
in either the robotics or computer graphics communities. In
pursuit of the goal of believable hand use for digital
characters, we propose an anatomy-based model of human
grasping. In particular, we propose a tendon-based quality
measure for humanlike enveloping grasps, and we plan to
evaluate this quality measure (1) for ability to
discriminate between grasps, (2) as a predictor of grasp
forces, and (3) for use in modeling grasp acquisition.
Because of the strong emphasis on human anatomy, this
research has the potential for additional impact outside
graphics and animation in areas including ergonomics (tool
design), robotics (robot hand design), and anthropology
(research in human hand evolution and tool use). The
educational portion of this proposal focuses on teaching and
mentoring of undergraduates. The research ideas, techniques,
and results will be incorporated into a course at Brown that
attracts both un-dergraduate and graduate students, and will
provide them with an opportunity to learn and experiment in
a problem domain that is a nice mix of computational
geometry and numerical optimization, grounded in human
anatomy and supported by data. A special effort will be made
to include undergraduate women in the research program, for
example, through the CRA Distributed Mentor Program.
Research results will include a library of example grasps
and applied forces, as well as a tool for adapting the
examples to new hand and object geometries. Once this
research is published, the data and tools will be made
available to other researchers on the web, and should serve
as a useful resource for creating digital characters for
education, entertainment, and training applications.